Research Initiation Award: Further Development of a UnifiedLinear System Theory and its Applications in Control and Communication Systems

It is well known that the analysis of Time-Varying Linear (TVL) and Nonlinear (TVNL) dynamical systems has been an elusive mathematical problem since the beginning of the studies of differential equations. Consequently, control, communication and signal processing systems with time-varying parameters are difficult to deal with. Recently (1987-1989) a new and Unified Linear System Theory (ULST) has been established for the class of scalar TVL systems of the form. Based on the theory, a novel stabilization control technique, called Extended-Mean Assignment (EMA) control, for TVL and TVNL dynamical systems has been developed (1990). The new theory and control technique is gaining an increasing interest in the control and systems community, and has found potential applications in aerospace, manufacturing and defense industries. The goals of this research project is to extend those results to the more general class of Multi-Input-Multi-Output (MIMO) TVL system x = A(t)+B(t)u; and to promote industrial applications of the ULST and EMA control technique in control, communications and signal processing. The proposed research will employ a differential-algebraic approach. The anticipated research results will establish a spectral characterization, precise stability criteria and solution techniques for the general class of TVL dynamical systems (differential equations) x = A(t)x+B(t)u, which will enable scientists/engineers to effectively deal with otherwise intractable scientific/engineering problems. It is believed that achievements in the proposed research areas will constitute a revolutionary breakthrough in modern systems science and control engineering.